Formal Power Series and Algebraic Combinatorics (FPSAC): An International Combinatorics Conference, The University of Melbourne, Australia; July 8-12, 2002

This award funds young mathematicians (graduate students and recent
Ph.D.'s) from the United States to travel to the fourteenth annual
Formal Power Series and Algebraic Combinatorics (FPSAC) international
conference, being held this year at The University of Melbourne
(Australia), July 8-12, 2002.

This continuing series of conferences bring together researchers from
various areas of combinatorics and theoretical computer science and
links them with leading scientists from allied disciplines in pure
mathematics, applied mathematics and physics. The focus of the 2002
conference is on algebraic and enumerative combinatorics, again with
emphasis on interdisciplinary links to allied fields.